Acquisition of an Autoradiogram Imaging System

9218818 Kogoma Five investigators of the Department of Cell Biology with active research programs in biomedical applications of molecular genetics and molecular biology request funds for the purchase of an autoradiogram imaging system, PhosphorImager 400E, to facilitate their research. Many experiments of these investigators involve autoradiography of a number of flat samples such as Southern, Northern, and Western blots; dot and slot blots; one- and two-dimensional gels for separation of proteins; and CAT assays. Several experiments that uniquely take advantage of the superior sensitivity and resolution that the instrument offers are described. The data to be obtained from these experiments are very difficult, if not impossible, to acquire by other means. Furthermore, the instrument is expected to allow acquisition of data with much greater precision and speed than the conventional X-ray film autoradiography. Thus, the instrument will speed up progress on the research projects and permit a greater contribution to the overall effort to solve the significant problems facing medical sciences today. Although priority will be given to the participating major users of this application, the instrument will be made available to other investigators of this research community to maximize the usage and benefit of the instrument.